Molecular Specificity of Pheromone/Receptor Interactions for Mating in Schizophyllum

The overall aim of this research is to understand how a simple
eukaryote distinguishes itself from many other nonselves in regulating
mating and development. A specific objective is to elucidate the molecular
mechanism by which the B mating-type genes trigger sexual development in
the wood rotting mushroom Schizophyllum commune. The B genes are in two
linked loci, Ba and Bb, each of which has nine different versions, or
specificities, in the world-wide population. A mating pair must be
different at either Ba or Bb to be compatible. Analyses of two specificities of
each locus has revealed genes for pheromones and pheromone receptors similar
to those found in other fungi. Each locus contains a single pheromone
receptor gene and several pheromone genes. This multiplicity of pheromone
and receptor genes appears to be unique to the higher basidiomycete fungi.
Molecular analyses to date indicate that as few as one or two amino
acid changes in either a pheromone or receptor molecule can be correlated
with a switch in mate recognition and signaling of sexual. The proposed
research is divided into three parts: 1) A comprehensive comparison of
sequence and function for a variety of natural and previously generated
mutant variants of pheromones and receptors to identify amino acid residues
in positions relevant to pheromone/receptor interactions. 2) Test the
effects of substituting various amino acids at specific sites that could be
relevant to pheromone/receptor recognition for each type of molecule, using
the methods of site-directed mutagenesis and DNA-mediated transformation in
S. commune. 3) Exploit a recently assembled heterologous
pheromone-response reporter system in the yeast Saccharomyces cerevisiae to
generate new mutant variants of S. commune pheromones and receptors and
efficiently characterize their effects on ligand/receptor interaction.